Cooperative Research Between Latin America Countries and the United States

This project will investigate the feasibility of establishing a Western Hemisphere (North and South American Continents) Center for Science and Technology. The factors to be considered are: location, language, organization and administration sources of support, research activities of a cooperative and/or coordination nature.